Introduction of Gas Chromatography/Mass Spectrometry into the Undergraduate Chemistry Curriculum

This project aims to introduce gas chromatography/mass spectrometry (GC/MS) capability into the undergraduate chemistry curriculum at the University of Scranton, both in course-related laboratory work and in independent student research. To accomplish this aim, a benchtop gas chromatograph/mass spectrometer will be purchased. The instrument will be configured for capillary GC, and will be supported by a complete data system including a spectral library. It will be used by undergraduates to learn principles and applications of GC/MS in the organic, instrumental and advanced inorganic course sequences, and to gain experience with computer-controlled data acquisition and analysis. It will also provide students with a powerful modern technique for use in their varied research projects, many of which involve significant work in drug analysis and petroleum exploration.